Classical and Quantum Descriptions of Chaotic Dynamical Systems

9507574 Jensen Theoretical investigations into experimentally accessible problems in quantum chaos continues. The research includes studies of scarred wavefunctions, stabilization of atoms in super- intense fields, excitation and ionization of atoms by single- cycle pulses and ballistic electron transport in semiconductor microstructures. ***